Instabilities in fluid motion

9970977
Friedlander

Remarkably little is known about the detailed structure of the stability
spectrum of the Euler equations that govern the motion of an inviscid
fluid. This is the case even though it is a classical problem and one
fundamental to an understanding of turbulent flow. Friedlander will
continue to exploit the concept of a "fluid Lyapunov exponent" which
provides an effective means for detecting high frequency instabilities in
the essential part of the spectrum. Instabilities may also arise in the
discrete spectrum and in this situation no general approach is, at present,
possible. Analysis of the eigenvalue problem will be given for a specific
2-dimensional flow with a "cat's eye" type structure which appears to
typify an interesting class of flows containing both oscillatory regions and
hyperbolic stagnation points. Friedlander also proposes to extend the range
of applicability of a result of Friedlander et al that proves under certain
conditions that linear instability in a PDE implies nonlinear instability.
Friedlander et al recently proved that in two dimensions any steady flow
that is sufficiently "close" to a nondegenerate unstable flow is also
unstable. The harder problem of robustness of instability for 3-
dimensional flows will now be investigated. A novel type of flow on a
torus with nonzero flux will be investigated using techniques from free
boundary problems.

The issue of stability of liquids or gases presents an important example of
a physical question that may be addressed through sophisticated
mathematical techniques. The answers have direct physical interpretations:
stable flows are robust under inevitable disturbances in the environment
while unstable flows break up rapidly. The question of stability or
instability of a fluid flow is fundamental to studies of physical phenomena
including those in the oceans and the atmosphere. In the view of many
scientists, waves and instabilities lie at the heart of our attempts to use
mathematical models for long term weather prediction and to better
understand global climate change. However there are important open
questions connected with the fundamental equations that underlie all
models for fluid behavior. This proposal seeks the answers to some of
these questions related to fluid instabilities.